Integrative Structural Determination Federation (iSDF) Workshop

The PIs will organize a workshop that brings together members and stakeholders of the integrative Structure Determination Federation (iSDF), a new entity that is envisioned as a network of model and data resources that contribute to structural biology. The proposed workshop is aimed at initiating engagement of diverse experimental data and structural model communities in order to plan for an interoperating network of model and data repositories. The workshop builds upon three years’ effort on building blocks required for developing coordinated network of structural biology resources. This earlier effort stems from an action in 2014 by wwPDB to create an Integrative/Hybrid Methods task force which had, as one of its key recommendations, to create a federated system of model and data archives. The outcome of the workshop is a set of requirements for creating well-aligned data standards and protocols for efficient data exchange among participating repositories.

This project is supported by the National Science Foundation Public Access Initiative which is managed by the NSF Office of Advanced Cyberinfrastructure on behalf of the Foundation.